ITR: Simplifying Design and Analysis of Cryptographic Protocols

As Internet usage increasingly penetrates all aspects of society,
security concerns increasingly rise in importance. As one moves from
merely hosting web sites to supporting electronic commerce, banking,
auctions, health-care, and voting, the ability to prevent malicious
outsiders, or even malicious insiders, from gaining confidential
information or manipulating the system becomes increasingly critical.
Looking to the future, one can expect the evolution of even more complex
systems, such as digital rights management systems and elaborate single
sign-on web services, with correspondingly complex security
requirements.

Cryptography is an essential tool for implementing secure distributed
systems over the Internet: no other technology provides the required
confidentiality, authentication, or other security properties.

Yet using cryptography effectively is surprisingly difficult. While
there are good candidates for the underlying basic cryptographic
operations (encryption, digital signatures, etc.), such cryptographic
primitives by themselves are not sufficient: they need to be utilized
within a larger framework---a cryptographic protocol---specifying
exactly how they are to be used in a multi-party distributed system. The
ability to design and prove secure a cryptographic protocol for a given
purpose is essential to the secure evolution of our Internet-based
society; yet our tools for doing so are still surprisingly awkward and
limited.

At the highest level of description, this proposal aims to remedy this
situation by providing tools and techniques that facilitate the easy
design and analysis of secure cryptographic protocols.

Today, there are two major approaches to protocol design. The first is
a formal approach pioneered by Dolev and Yao, based on theorem-proving
and model-checking. This approach offers surprisingly good design
tools, but at present this approach has a very limited domain of
applicability, and furthermore the limitations on what an adversary is
allowed to do in this approach make the analysis only suggestive, rather
than conclusive, in practice. (That is, a ``proof of security'' for a
protocol in this formal model doesn't necessarily imply that the
protocol will be secure in practice.) The second approach is based on
computational complexity; this approach offers solid conclusions, since
the adversary is not unreasonably restricted, but is very difficult to
use.

Intellectual merit of proposed research: The most significant research
direction proposed here is to build strong effective relationships
between these two approaches, greatly expanding upon earlier seminal
work by Abadi and Rogaway, and more recently by Herzog, and then Herzog,
Micali, and Liskov.

The goal is to provide methods so that one may use simplified formal
methods to design and analyze cryptographic protocols, with the
confidence that the result will be secure in the real world (that is,
when realistic computational models and assumptions apply). The formal
methods will be enlarged to handle many of the important ``details''
ordinarily not considered by formal methods, such as error handling and
algebraic identities. Cryptographic techniques will be used to
``force'' a real-world adversary to be no more powerful than his
``formal'' counterpart. The research will proceed by develping
``compilation'' techniques that enable any protocol proven secure within
the formal model to be implemented securely in the ``real world'' (that
is, within the computational model).

This research program is challenging; it requires an interdisciplinary
approach as it crosses boundaries normally respected. Furthermore,
developing ``generic'' techniques that apply to any protocol is
necessarily more challenging than the usual procedure of working on
protocols individually.

Broad impact: The results of this research will not only advance the
academic state of the art, but will also provide practitioners with
effective tools and technology for making Internet-based society
increasingly secure. The simplifications resulting from the proposed
research will also enable cryptographic protocols to be taught in an
effective and secure manner to a larger circle of students and
implementers.